Postdoctoral Fellowship: MSPRF: Affine Geometric Inequalities and Minkowski Problems

This award is made as part of the FY 2024 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Stephanie Mui is “Affine Geometric Inequalities and Minkowski Problems”. The host institution for the fellowship is the Georgia Institute of Technology and the sponsoring scientist is Galyna Livshyts.